SGER: Optimitation of Fermentations Through Intelligent Identification and Control

9812709 Hamrita The goal of this proposed research is to develop and apply artificial intelligence pattern recognition techniques to the process data provided by Merck & Co. to detect the different phases of the fermentation, compare the obtained results with the expert knowledge of the process operator, and determine correlations between productivity and the process variables. This research will look at fundamentally different control methods than those currently used in industry to try to overcome the problems of inaccurate models, the lack of reliable sensors, and the variable nature of fermentation processes.
***